NSF Support of US-Based Travel to the Ninth International Conference on Intelligent Systems for Molecular Biology, 21-25 July, 2001, Copenhagen, Denmark

The conference, Intelligent Systems for Molecular Biology, provides a general forum for disseminating the most recent developments in bioinformatics. Bioinformatics has become an increasingly important tool for understanding biology, driven by genomic sequence efforts and other large data sets in biology. The meeting brings together scientists from computer science, molecular biology, mathematics and statistics. The systems include cutting-edge software and database technologies. Emphasis is placed on validation of methods using real data sets, on practical applications in the biological science and on development of novel computational techniques. The funds will provide travel support for students and young investigators who submit applications and are required to present either a paper or poster at the meeting.